US-Africa & India Planning Visit: Automated Data Collection for Assessment of Web-Based Research Communication

INT-0073906

This is a planning visit proposal for Professor Wesley M. Shrum, of the Department of Sociology at Louisiana State University, to travel to Ghana, Kenya, and India, to meet with his counterparts for the purpose of finalizing plans for a collaborative project on the development and assessment of the Web-based research capacity in each of these countries. Professor Shrum will meet with Professor J. Opare, at the University of Cape Coast in Ghana; Mr. J. de Smedt at MSF-Spain (an NGO) in Kenya; and Professor R. Sooryamoorthy, at the Loyola College of Social Sciences in India.

Web communications are being introduced or expanded in many developing countries, including Ghana, Kenya, and India. Data will be collected and analyzed on the interpersonal networking patterns and information search behaviors of soil scientists in selected governmental and academic research institutions. The results will be used to assess the current and future impact of the Web on scientific and technological capacity in developing countries